Harmonic Analysis and Nonlinear Hamiltonian Equations

The project suggests investigations in the area of Harmonic
Analysis and Nonlinear Hamiltonian Equations. One direction
of the research in the analysis of singular integral operators.
Current interests include Lebesgue space estimates on Fourier
integral operators associated to singular and nonsingular
canonical relations. Such estimates provide important tools
for the analysis of properties of solutions to nonlinear
Hamiltonian systems: global existence, smoothness, and stability.
The other direction of the research concerns specific properties
of solitary wave solutions to nonlinear Hamiltonian systems.
Such soliton-like solutions were proved to exist in many
different contexts. If the equation is invariant under the
action of some Lie group, then the solitary waves may possess
stability properties. The program of research focuses on the
stability of solitary waves with minimal energy, which are
expected to be of particular importance for applications.

When the amplitude of the waves increases, their interaction with
the medium becomes important. This interaction may seriously
change the behavior of the waves and lead to the appearance of
nonlinear solitary waves, or solitons. Such nonlinear waves
describe central phenomena in fiber optics, plasma physics,
theory of superconductivity, theory of elementary particles,
meteorology, and oceanology. Detailed knowledge of properties
of such waves, and in particular their stability or instability,
will allow to predict the chances of sudden weather changes,
develop optical waveguides, and describe quantum effects on
the scales being inexorably approached by today's electronics
and chip manufacturers, let alone the Experimental Physics.
Natural phenomena pose new challenges to the intricately related
fields, Harmonic Analysis and the Theory of Nonlinear Equations,
and stimulate further refinement of the tools of modern
Mathematics.